Molecular Basis of Antigen-Antibody Recognition: G-Protein as a Model System

This research project involves a multifaceted approach to investigate two fundamental questions: 1) the molecular determinants of antigenic recognition of peptides and proteins; and 2) the molecular basis for signal transduction by the G protein family. Drs. Hamm and Kahn will study the conformation of an antigenic determinant of bovine guanine nucleotide binding protein (G-protein). They have shown with monoclonal antibody 4A studies that this region is the major site of interaction with rhodopsin, the light receptor in vertebrate rods. Thus, studies of the structure of this site will simultaneously provide information on the stucture of a receptor-effector recognition site, as well as the structure of an antigen-antibody interaction site. Despite the central position which peptides and proteins occupy in the regulation of virtually all biological processes, a molecular understanding of their structure- function relationship remains relatively unknown. To date, extensive and in several cases successful efforts have been mounted to modify peptides and proteins to examine this interplay. These studies will yield molecular models of the site of interaction of G-protein with rhodopsin, and may give insight into the recognition and triggering mechanisms involved in enzyme activation by protein-protein interactions. The work will also shed light on the importance of secondary structure and rigidity/flexibility in antigen-antibody interactions.***